RUI: Proteins as Guidance for Regioselective Modification of Steroids and Disaccharides

The focus of this research is to develop a methodology for conferring regioselectivity in organic syntheses through specific binding of substrates to biological macromolecules. To demonstrate the feasibility of this approach, two projects with strong application potential will be undertaken. First, bovine serum albumin (BSA) will be used to guide the regioselective reduction of steroids. Second, a lectin (e.g., concanavalin A) will be used to guide the regioselective modification of disaccharides such as lactose and melibiose. These regioselectivities are based on the proteins' specific and unique binding properties. This new method may be useful in the development of new modified steroids and carbohydrates of commercial importance. Undergraduate students will be involved at all stages of this research in a team environment, from experimental design, synthesis, instrumental operation, to data collection and analysis. This not only trains them technical skills in biochemistry and organic chemistry, but also boosts their interest in pursuing research careers in these fields.